SBIR Phase I: Autonomous 3D Printer/Former for On-Site, Affordable Construction

The broader impact of this Small Business Innovation Research (SBIR) Phase I project will be to make possible small-scale, high-quality automated construction. This proposal investigates a method to automate the concrete forming process from design to construction, including site assessment, design, and material construction. This platform can provide fast on-site construction, reduce renovation timelines, and provide habitat affordability.

This project advances translation of an automated concrete forming process, including concrete material formulations, robotic path planning/ machine vision for construction sites, and end-effector electromechanical designs. Other processes to be engineered include 3D mapping of existing site conditions, associated design processes, robotic path planning and material scheduling, and project execution.